Doctoral Dissertation Research: Indigenous Legality in the Bolivan Andes

This project advances knowledge of the ways people at the economic, political, and social margins use legal processes to create meanings and identities, and contest structures of power that are traditionally self-perpetuation. The research, conduced in and near Sacaca, Bolivia, will be the first in the Bolivian Andes to elucidate local legality and to relate the workings of local legal processes theoretically to the nation legal structure. The method has tow components First, a three-stage interviewing process is being employed. Initial interviews seek to establish the existence of disputes over land and water. The list of disputes will then be randomly sampled and in-depth interviews will be conducted to create `life histories` of disputes that are embedded in the histories of the disputants themselves. Finally, participant observation will be conducted to assess current, unfolding land and water disputes. This research will make theoretical advances by analyzing local legal processes and contribute to global understanding of legal phenomenal. It will also contribute to understanding of legal pluralism. %%% This project advances knowledge of the ways people at the economic, political, and social margins use legal processes to create meanings and identities, and contest structures of power that are traditionally self-perpetuation. The research, conduced in and near Sacaca, Bolivia, will be the first in the Bolivian Andes to elucidate local legality and to relate the workings of local legal processes theoretically to the nation legal structure. The method has tow components First, a three-stage interviewing process is being employed. Initial interviews seek to establish the existence of disputes over land and water. The list of disputes will then be randomly sampled and in-depth interviews will be conducted to create `life histories` of disputes that are embedded in the histories of the disputants themselves. Finally, participant observation will be conducted to assess current, unfolding land and water disputes. This research will make theoretical advances by analyzing local legal processes and contribute to global understanding of legal phenomenal. It will also contribute to understanding of legal pluralism.